WeBWorK - a Web-Based Homework System

Mathematical Sciences (21). This project is developing a significant set of enhancements and extensions to the functionality of WeBWorK, an Internet-based system for generating and delivering homework problems to students, already in use at a number of colleges and universities in the country. These enhancements and extensions are streamlining and modularizing the system code and improving its functionality, speed and reliability. In addition to acting as a hub to integrate contributions and ideas from users, the project team is forming a comprehensive library of WeBWorK problems covering topics such as single and multivariable calculus, differential equations, finite mathematics, college algebra, linear algebra, statistics, and other subjects, thus expanding the current collection of calculus and differential equation problems and facilitating the sharing and selection of WeBWorK problems. The WeBWorK system and problem library are expected to be freely distributed to educational institutions.